Angular Integrations for Large-Scale Atomic Calculations

9501830 Fischer This award supports a joint collaboration between American and Lithuanian scientists to develop much more efficient techniques to calculate the angular integrals involving f-shell electrons needed for atomic structure calculations. ***